2017 GRC on Organellar Channels and Transporters

This project will support attendance of young faculty, under-represented minority scientists, PUI faculty, along with graduate students and post-docs at the 2017 Organellar Channels and Transporters conference to be held in West Dover, Vermont, July 30-Aug 4, 2017. The meeting will consist of short talks, poster sessions, communal dining, and conversations that will provide ample opportunity for sharing latest research results and for exploring collaborative possibilities.

Organellar channels and transporters play essential roles in both the function of individual intracellular compartments and also how the activities of these compartments are coordinated and integrated into cellular function. The Broader Impacts of this work involves both the importance of the topic to a range of organisms including both plants and animals, as well as the training of new scientist to pursue research in these emerging fields. Sessions will be developed to provide opportunities for young researchers to present their work. The primary purposes of this conference are to promote discussion between scientists with common professional interests, including those from non-research-intensive colleges and universities, to foster the exchange of ideas from advanced aspects of their field, and to enable scientific collaborations to evolve in new directions.